Learning and Intelligent Systems: Center for Innovative Learning Technologies

9720384 SRI International Roy D. Pea Learning and Intelligent Systems: Center for Innovative Learning Technologies The Center for Innovative Technologies (CILT) stimulates the development and implementation of important, technology-enabled solutions to critical problems in K-14 science, mathematics, engineering, and technology learning. Four institutions-SRI International; the University of California at Berkeley; Vanderbilt University; and the Concord Consortium-provide Center leadership and infrastructure. "Theme teams" conduct the Center's research, development, and implementation activities. Participants drawn both from the founding organizations and from elsewhere will represent the best possible mix of expertise. Theme teams will include computer scientists and engineers; experts in science, mathematics and engineering instruction, policy, and research; and industry leaders. Participants will work together in national workshops and on-line discussions to review their research results, identify critical challenges and potential breakthroughs in their theme area, and select prototype collaborative projects for CILT sponsorship. These prototype projects serve as"seed" efforts that,can transform the use of learning technologies in education. The Center's initial themes are Virtual Learning Communities; Visualization and Modeling; Low-Cost, Ubiquitous Computing; and Assessment. CILT provides the infrastructure for synthesizing learning technology R&D and implementation lessons across projects, stimulating multidisciplinary collaboration and rapid innovation, and fostering communication among technology supports for mathematics and science learning. CILT will train postdoctoral scholars from multiple disciplines to lead the field of learning technologies in the future.